Collaborative Research: Anomalous Assembly of Molecular Bottlebrushes via Tethering-Constrained Crystallization

Precise control of polymer structures at very small scales is essential for creating materials with desired properties and functions. This collaborative project aims to understand, design, and control how a special class of polymers, known as molecular bottlebrushes (MBBs), assemble into complex structures. MBBs are composed of a relatively long polymer backbone with densely grafted shorter polymeric side chains, resembling the brushes for bottles and bottlebrush flowers. This project introduces a new approach that enables the formation of unique microscopic hollow capsules called crystalsomes from MBBs. The research will investigate how crystalsomes form, how different bottlebrush polymer designs influence their assembly, and how to create crystalsomes with programmable and responsive properties. The knowledge gained will help establish a new platform for controlling the self-assembly of polymers and fabricating advanced functional hollow polymer nanoparticles. Therefore, these advances will benefit the broader field of advanced manufacturing. The project will bring together two research groups with complementary expertise and create opportunities for educational activities, including student mentoring, classroom instruction, and outreach to the broader community.

Self-assembly from tailor-made macromolecules is one of the most promising approaches for creating complex structures with precise control. Crystallization offers an effective route to forming mechanically robust structures; however, it often dominates the self-assembly process, resulting in conventional flat one- and two-dimensional crystals. This project introduces a tethering-constraint effect in molecular bottlebrush (MBB) systems to counterbalance crystallization. The competition between crystallization and backbone-layer deformation breaks the translational symmetry of the assembled structure, leading to the formation of microscale capsules known as MBB crystalsomes (MBCs). The proposed research will systematically investigate the mechanisms underlying MBC formation and harness these principles to program the assembly of complex hollow polymer nanoparticles. Specifically, the work will focus on: (1) understanding the formation mechanisms of crystalsomes in homografted MBBs; (2) elucidating tethering-constrained crystallization in MBBs heterografted with side chains of distinct polymers and homografted with block copolymer side chains; and (3) developing programmable and stimuli-responsive MBCs. The knowledge gained from this study will establish a new platform for controlling the self-assembly of polymers and designing advanced functional nanostructures.